Advanced Software Technology for an Exascale Point Design Study

The NSF and other Federal agencies will require further understanding of concepts, methods, and means for Exascale computing systems before formulation of future programs in enabling technologies, architectures, and methodologies. NSF supports a targeted two-year program of investigation, The Exascale Point-design Study, to provide sufficient depth and detail of understanding of the interrelationships among possible enabling technologies, implementation architectures and operating system software, and programming interfaces and methodologies.

Working in consultation with LSU, USC, UIUC, and Sandia National Laboratory (under DOE sponsorship), UD team devises an Exascale compilation technology and strategy derived from prior research conducted under NSF, DOE, and DARPA sponsorship, reflecting some of the best-known principles and practices envisioned for hardware and software at the Exaflops scale. This collaborative research will be performed in collaboration with our partners who will contribute architecture (LSU), application drivers and programming models (UIUC), enabling technology and hardware system design (USC), and systems integration and deployment (SNL). The team plans to provide a final report of its evaluations and analysis.